Mathematical Sciences: Operator Algebras and Noncommutative Topology

This project is mathematical research in the theory of operator algebras. The starting point for the relationship of this subject to topology is the circumstance that the commutative C*-algebras are precisely those that arise as the algebra of continuous complex-valued functions on a locally compact topological space. (The latter algebra contains enough information to recover completely the underlying space.) The general program is to extend ideas and constructions from the commutative setting of topology to the noncommutative realm of operator algebras. Specific topics to be investigated are: existence and properties of homology and cohomology theories on the category of C*-algebras; ring structure in K-theory; operator fields over singular spaces; and nonstable K-theory, especially for simple C*-algebras.